Symposium on Scientific Frontiers and International Issues

Symposium, "Scientific Frontiers and International Issues," an international and multidisciplinary group of about 50, will consider the future role of science in international concerns by examining the prospects in three areas--materials science, communications and information, and biology--and the implications of each for such global issues as basic human needs, natural resource use, military and economic security, and education and training.